Parity Nonconservation in Ytterbium

Abstract for Ytterbium Parity Nonconservation Experiment

Much of fundamental physics can be understood through
considering underlying symmetries that interactions possess. One such
symmetry is that of mirror reflection. Does a mirror reflection change the
interaction, or, equivalently, do left-handed and right-handed particles
interact in the same way? Most fundamental interactions, such as gravity,
electromagnetic, and nuclear strong interactions, are the same under mirror
reflection. This symmetry allows one to make predictions on what kind of
physics processes are possible. However, there is a fundamental
interaction due to the weak force, the force responsible for certain kinds
of nuclear radioactive decay, which is not the same for left-handed and
right-handed particles. The fact that it is the only force that does not
possess mirror-reflection symmetry allows one to distinguish it from other,
stronger interactions. Our work is focused on using high-precision laser
spectroscopy techniques to study mirror-reflection symmetry of atoms. This
understanding will allow us to learn about the fundamental processes inside
the nucleus and between the nucleus and atomic electrons due to the weak
interaction. This improved knowledge will provide a stringent test of our
understanding of the fundamental building blocks of nature and help to
clarify our understanding of nuclear and particle physics.